Initiation of Sex Determination in Drosophila

Cronmiller 93-16826 The broad goal of the proposed work is to understand the molecular basis of the initiation phase of the sexual pathway choice in Drosophila. Toward this goal, the following questions will be asked: 1) Where and how do mutational changes in the da gene disrupt wild-type function? Six new ethyl-methane-sulfonate induced alleles which have been characterized genetically will be sequenced to find functional domains within the da gene product. 2) What regions of Da are required to activate sex-specific Sxl expression in vivo? This approach will use in vitro mutagenesis, combined with a transient in vivo functional assay, to complement the domain mapping by mutational analysis. 3) Two newly identified putative regulators of sex determination, E(2)AX and E(2)P239 will be genetically characterized in regard to the null phenotypes, temporal and spacial expression, function, genetic roles during sex determination and the molecular mechanisms of function. %%% A central problem in the study of eukaryotic development is how the growth and differentiation of an organism is genetically programmed. Sex determination in Drosophila has proven to be a successful model system for elucidating basic biochemical mechanisms that mediate the initiation and subsequent maintenance of commitments to a variety of cellular differentiation pathways. For example, the genetic and molecular analysis of the Initiation of the sex determination pathway has uncovered connections between this system and such diverse processes as dosage compensation, neurogenesis, oogenesis, mammalian immunoglobulin gene expression and oncogenic transformation. These connections have emerged, in part, as a result of the characterization of the daughterless gene. The daughterless (da) gene has multiple roles in development, one being the control of the cellular choice between male and female developmental pathways. In this capacity, the gene functions together with the molecular constituents o f the pathway initiating signal, the X/A ratio. Maternally supplied daughterless product is required as a positive activator of the gene, Sex-lethal (Sxl), which acts as a binary switch gene for the sex determination pathway. The product of the daughterless gene is a DNA-binding protein, a member of the basic-helix-loop-helix family: The da protein (Da) appears to be a transcription factor. The ultimate goal of the work outlined in this proposal is to understand the molecular basis of the Initiation stage of sexual pathway choice in Drosophila. One approach toward this goal will include a functional "dissection" of the daughterless protein, one of the key molecules in this genetic regulation. An in vivo bioassay will be developed to identify functional domains within the structure of Da, and the molecular lesions responsible for a collection of genetically defined hypomorphic and null alleles of the gene will be identified. A second approach will consist of the characterization of other loci that may function in the early regulation of sex determination. Two recently identified genes will be analyzed to determine their genetic and molecular contributions to sex determination. ***